Dissertation Research: From Quantum Revolution to Institutional Transformation: Edward Condon and the Dynamics of Pure Science in America, 1928-1954

This dissertation research project will focus on how the content and methods of modern physics research extended beyond academia into industrial and government institutions. This process will be revealed by linking Edward Condon's early experience as a leading theoretical physicist at Princeton University to his subsequent and largely unknown role as a scientist and research manager at the Westinghouse Electric and Manufacturing Company, the National Bureau of Standards, and the Corning Glass Works. Examining Condon's efforts to reform the content, practice, and organization of basic scientific research in industry and government during the Great Depression, World War II, and the Cold War will provide a unique opportunity to study the impact of individual initiative on institutional change in twentieth century America. This dissertation will be of particular interest to historians of science and business historians seeking alternatives to the commonly held assumption that scientific knowledge is created in the university and simply applied to industry.